Metric Differential Geometry and Mathematical Gravity

DMS-0104042
Gregory G. Galloway

Research under this award will be conducted in the areas of
Lorentzian and Riemannian geometry, with applications to General
Relativity and String Theory. One of the specific aims of this
project is to investigate the global structure of asymptotically
locally anti-de Sitter spacetimes, especially in connection with
the AdS/CFT correspondence. We continue investigations into the
relationship of the topology of an asymptotically locally
anti-de Sitter spacetime and that of its conformal
boundary-at-infinity, and undertake a study of certain
topological and geometrical properties of higher dimensional
black holes, and related objects arising in string theory,
including certain solitions conjectured to be least energy
configurations. Another aim of this project is to continue
investigations into spacetime rigidity phenomena associated with
the occurence of timelike lines and null lines. Applications of
the null splitting theorem will be considered, and a new
approach to well-known conjectures concerning the rigidity of
the singularity theorems is proposed for study.

Modern theories of gravity are geometrical in nature. The
gravitational field and other fields, black holes and related
objects, may be described and analyzed using geometric methods.
In more general terms, this project is concerned with the study
of certain features of gravity of current scientific interest
from this geometric point of view, utilizing the tools of
Riemannian geometry, a mathematical theory of space, and
Lorentzian geometry, a mathematical theory of spacetime. These
theories provide a method for studying the relationship among
three fundamental aspects of the spacetime universe: curvature
(i.e., the bending of space or spacetime), topology (i.e., the
global shape and complexity of space or spacetime) and causal
structure (i.e., the large scale behavior of light rays and
light cones).